SENSORS: Design of Robust, Networked Control Systems via Convex Optimization

Project Summary
Design of Robust,Networked Control Systems via Convex Optimization
Intellectual merit of the proposed activity
We are on the threshold of eing able to place sensors everywhere.This has een precipitated in part y the
continued rapid advances in sensor technology,which will allow us to place sensors ranging from the nano-
scale to the macro-scale on almost any physical device,at an economically viable cost.This alone,however,
would e limited in scope without the ability to process the potentially vast amounts of information generated
y these devices,and the ability to network them to ensure that the relevant information is made available
to the appropriate entities.Fortunately,computing and communication technology has een keeping pace
with sensor technology,and all the ingredients are there for major reakthroughs in the near future in how
we interface to,and control our environment.This will certainly e hastened y the Sensors and Sensor
Networks program,which will promote the creation of new sensor concepts and new methods for facilitating
the transfer of information.
There are some serious challenges,however,that must e overcome efore these future sensor networks
can e successfully deployed.One of the major challenges is the ability to make the appropriate decisions
based on distributed information,across a distributed network.To put this challenge in context,it is well
known that two comparably simple dynamical systems can exhibit complex ehavior when interconnected.
This observation,and the associated challenges,have een the driving force ehind much of the research in
feedback theory and feedback control.In particular,ensuring that feedback systems ehave reliably,in the
presence of uncertainty,has een the main focus of feedback control theory,and continues to gain importance
in dynamical systems theory.This theory,however,has largely een focused on systems with degrees of
freedom (or system states),inputs,and outputs that can e counted in the tens to the hundreds.What is
required for the successful deployment of the em edded sensor networks of the future are design and analysis
tools that can handle systems that are distributed,with potentially millions of states,inputs,and outputs.
The proposed work is aimed at developing new tools for designing and controlling systems that are
distributed across a network,with distributed decision making units,with large num ers of components.
The emphasis will e to develop tools for systems governed y di .erential and di .erence equations,oth
linear and nonlinear,with large num er of components,and interconnected through networks of limited
connectivity.The principle theoretical tools employed will consist of convex relaxations and semide .nite
programming.The proposed work is focused,and will not e an all-encompassing e .ort.Rather,it is aimed
at solving some fundamental problems in designing and controlling systems across networks,and will thus
e an integral component of the overall e .ort in the Sensors and Sensor Networks program.
Broader impacts of the proposed activity
The PI has a strong proven track record in this area.Examples include:1)advises approximately thirty
students every year,from computer science,electrical engineering,and mechanical engineering,in the design
and construction of complex electro-mechanical and software systems as part of the Systems Engineering
program at Cornell (of which he is a co-founder);these systems are used y M.S.and Ph.D.students for
their research.2)Has given public lectures and demonstrations at the Smithsonian in Washington,the Tech
Museum of Innovation in San Jose,NASA SIGMA series (a public forum for science and technology),National
Engineering Week activities at NSF (attended y local area high-school students).3)Gives approximately
.ve to ten demonstrations involving the control of autonomous systems every year at Cornell to local-area
elementary school children and under-represented minorities.4)Has een an invited speaker at two NSF
sponsored workshops,attended y high-school teachers and students,aimed at promoting and disseminating
control related research.5)Has appeared twice on Scienti .c American Frontiers,a television science program
on public television hosted y Alan Alda.6)Was the executive producer of a CD-ROM sent to hundreds
of prospective engineering students outlining Systems Engineering e .orts at Cornell University.The PI
will incorporate the proposed research into these activities aimed at educating the public on systems and
feedback,and more roadly,on science and engineering.